Postdoctoral Research Fellowship in Biological Informatics for FY 2005

Douglas G. Scofield
DBI 0434671

This action funds an NSF Postdoctoral Research Fellowship in Biological
Informatics for FY 2005. The fellowship supports research and training
at the postdoctoral level at the intersection of biology and the
informational, computational, mathematical, and statistical sciences.
The goal of the fellowship is to provide training to a young scientist
in preparation for a career in biological informatics in which research
and education will be integrated. There is an increasing need for
training in biological informatics at all occupational levels, and it is
expected that Fellows trained through these fellowships will play
important roles in training the future workforce.

The research and training plan for this fellowship is entitled
"Evolution of introns in untranslated regions of genes". Using
predictions and insight from theoretical population genetics, this
project seeks ultimately to provide creative methods and results for
studying the evolution of traits in long-lived plants, where generation
times make existing methods impractical if not impossible. The current
focus is on the use of informatics tools to explore the evolution of
untranslated regions (UTRs) of genes, and specifically the evolution of
introns within UTRs. Introns are regions of genes that are removed
prior to their translation into proteins, and mistakes in the removal of
introns are implicated in about one-third of human diseases. Genome
sequence data will be used from many separate species to explore the
effect of population size, and genome features, on the structure and
evolution of introns. A publicly available database of introns found in
UTRs is being constructed, as are several software tools that will be of
use to evolutionary and genome biologists.

The training goals are to learn the theories of genome evolution and the
techniques of genome biology. In combination with the Fellow's
extensive experience in both evolutionary genetics and software
engineering, the fellowship will provide a solid foundation for robust,
comprehensive design of large bioinformatics projects.

--------------------------------